Purchase of a Computer

Chemists carrying out frontier research are relying more and more on computers that are capable of handling sophisticated simulations, data analysis and graphics software. The need to accomodate multiple users on the single laboratory computer and multiple users on a single chemistry department facility can be met by a single solution: individual work stations for the majority of user needs and, for the remainder, ready access to other types of work stations and, ultimately, to a mini supercomputer. This award from the Chemistry Shared Research Instrumentation Program will help the Department of Chemistry at the University of Colorado at Boulder to acquire, maintain and operate a graphics computer system. The areas of chemical research that will be enhanced by the acquisition include: 1. Ab Initio and Semiempirical Calculations 2. Gas Phase Ion Molecule Chemistry 3. MCSCF Calculations on Organic Radicals